2005 SIGART/AAAI Doctoral Consortium

This award supports participation of doctoral students from U.S. universities in the tenth SIGART/AAAI Doctoral Consortium to be held July 9-10, 2005 in Pittsburgh, PA, in conjunction with the 20th National Conference on Artificial Intelligence (AAAI-05), July, 9-13, 2005. The Doctoral Consortium aims to: (1) provide a setting for feedback on participants' current research and guidance on future research directions; (2) develop a supportive community of scholars and a spirit of collaborative research; (3) support a new generation of researchers; and (4) contribute to the conference through interaction with other researchers at the conference. The Doctoral Consortium will strive to recruit and include students from underrepresented groups (e.g., women and underrepresented minorities) and smaller schools or schools with less established programs in artificial intelligence. Each student will give a 25-minute presentation to be followed by 20 minutes of discussion lead by a faculty participant. In addition, each student will have a one-on-one meeting with the faculty participant. There will also be opportunities to discuss career issues in both academic and other career pathways. It is expected that thesis summaries of the participants will be published in the AI Magazine